Coordination for the Geospace Environment Modeling Workshops

The awardee will support the coordination of the NSF Geospace Environment Modeling (GEM) workshops. The GEM workshops are comprised of a week-long workshop each summer and a half-day mini-workshop in conjunction with each Fall American Geophysical Union (AGU) meeting. The funds will support all facets of the workshop including facility planning, meeting logistics, room and audio-visual rental, student and scientist travel support, and associated administrative support. The goals of the workshops are to identify and work toward solutions of outstanding problems in several focused areas of research that will contribute to the ultimate development of a magnetospheric global circulation model. The goal of the workshop coordination is to provide organized forums to foster the community-wide discussions and research needed to achieve the GEM initiative goals.